An Industry/University Cooperative Research Center for Microwave and Millimeter Wave Computer-Aided Design

9312151 Booton This award provides funding for the first year of a three-year continuing award for the "Self-Sufficient Partnership for Research" Program and support of the evaluator at the University of Colorado, Boulder Industry/University Cooperative Research Center for Microwave and Millimeter Wave Computer-Aided Design. The Center continues to meet the renewal criteria requirements of the I/UCRC Program. Additional funding is provided for a woman undergraduate student to aid the Center in its ongoing research activities. Funding is also provided by the Central Intelligence Agency (CIA) to obtain a membership in the Center and to augment ongoing research. The Department of Energy's Environmental Restoration and Waste Management Office is providing funding to obtain a non-voting membership in the Center. The Program Manager recommends the University of Colorado, Boulder be awarded: $57,242 for the first year of a three-year continuing award; $5,000 for one year with funds provided by the Women, Minorities, and Disabled Engineering Research Assistants Program; $50,000 for one year with funds provided by the CIA; and $10,000 for one year with funds provided by the U.S. Department of Energy. Near the end of each 12-month period, the Program Manager and/or the Division Director of the Engineering Education Centers Division will review the progress of the Center on a number of renewal criteria, including the following: 1) the extent to which the university-industry interaction is developing; 2) the extent to which the support base is developing; and 3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Manager will recommend support for the next period of this continuing award.